Absorption Cross Sections and Primary Quantum Yields for Several Aliphatic Aldehydes and Ketones of Atmospheric Interest

Photodissociation is the major sink for aldehydes and ketones in the troposphere and is a primary source of free radicals which are important reactive intermediates in the chemistry of other atmospheric constituents including ozone and compounds that contribute to the formation of acid rain. The competition between photodissociation and chemical reaction of aldehydes and ketones is an important factor controlling tropospheric free radical concentrations. Uncertainty in the absorption cross sections, quantum yields for photodissociation, and primary photolysis products for aliphatic aldehydes and ketones represents a significant source of error in models of tropospheric chemistry. The proposed research is a systematic study of the spectral and photochemical properties of aliphatic aldehydes and ketones. The gas phase absorption spectra of these compounds in the wavelength region 200-400 nm will be measured in nitrogen/oxygen gas mixtures as a function of temperature to determine their absorption cross sections under conditions found in the troposphere. Absorption spectra will also be measured in aqueous solution to determine the cross sections for these compounds in atmospheric droplets. The primary quantum yields for gas phase and aqueous phase photodissociation of several of the compounds will be determined as a function of photolysis wavelength, temperature, partial pressure of aldehyde or ketone and total pressure (for gas phase measurements), and pH and dissolved oxygen concentration (for aqueous phase measurements). The results from the research will clarify the role of aliphatic aldehydes and ketones in the chemistry and photochemistry of the troposphere.